Nonequilibrium Plasma Processing of Advanced Materials

The PIs propose to apply a recently introduced plasma-assisted non-equilibrium high pressure processing technique to the formation and deposition of diamond films. This innovative technique makes use of an additional biasing electric field which could preferentially heat electrons in the plasma and hopefully perturb the gas-phase chemistry in the boundary layer in such a fashion as to affect the production of the resulting diamond films. The idea is that hot electrons produced by the discharge will dissociate molecular hydrogen near the diamond forming substrate, thereby increasing the concentration of atomic hydrogen near the surface and enhancing both the growth rate and quality of the diamond film. Sophisticated laser diagnostics, including degenerate four-wave mixing, will be used to ascertain and monitor the important species in the diamond formation process. A three year effort is proposed which will involve a coordinated effort with the discharge experiments, deposition experiments, diagnostics, and theoretical modeling, thus creating a "closed loop" system.